U.S.-Japan Cooperative Research: Fault-Tolerant Programming Based on Attribute Grammars

This award will support a two-year U.S.-Japan cooperative research project between Professor Richard Schlichting, Department of Computer Science, University of Arizona, and Professor Takuya Katayama, Department of Computer Science, Tokyo Institute of Technology. The goal of the project is to simplify the construction of fault-tolerant software, that is, software that can continue to provide service despite failures in the underlying computing platform. The specific intent is to adapt the AG programming languages developed at the Tokyo Institute of Technology for this purpose by extending it to support two techniques frequently used in fault-tolerant programming, recovery and replication. AG is based on attribute grammars, and as such, offers advantages such as a declarative style, separation of semantic and syntactic definitions, and a functional foundation.